Dissertation Research: Cultural Transmission of Food Avoidances Among the Lese of Zaire

Understanding the dynamics of cultural transmission can illuminate the means by which cultures maintain themselves or change over time. This dissertation research will apply a new body of theory, gene-culture coevolution, to an investigation of cultural transmission of a significant trait, food avoidances. Coevolutionary models are an extension of population genetic models reflecting the characteristics of cultural as opposed to genetic transmission. The Lese, horticulturalists of the Ituri Forest, Zaire, are relatively isolated from mass media, making cultural transmission among them a matter of inter-personal contact -- and ideal situation for this kind of study. The investigator will interview 300 individuals to elicit their set of food avoidances and food-related beliefs. He will infer how individuals learn their food avoidances by estimating mathematical transmission models using this information. He will also test other hypotheses from the literature concerning the functions of food avoidances. This research is important because it will test a theory of cultural transmission by applying the theory to non-Western people. The knowledge gained from this project will help us understan how cultures are reproduced over time and the adaptive significance of the pattern of reproduction.